Oceanographic Instrumentation for the R/V Savannah

A request is made to fund additional and back-up instrumentation for the R/V Savannah. The R/V Savannah is a 92 foot coastal research vessel operated by Skidaway Institute of Oceanography as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. The request includes four items listed by priority:

1) Acrobat Towed Vehicle
2) Optical Nitrate Sensor
3) Deck Incubation Units
4) Stereo Microscope

Broader Impacts: The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.